High Quality Biotechnology Education

The National Association of Biology Teachers (NABT) will conduct a project using the Life Technologies, Inc.(LTI): GIBCO BRL Training Center laboratories in Germantown, Maryland. Two-year college faculty in partnership with high school teachers from across the nation will be updated on cutting-edge biotechnological research and procedures. Teamed with scientists and technicians from industry, these teachers will develop an innovative educational model to rapidly adapt the advanced techniques and sophisticated equipment of modem biotechnology to inexpensive, hands-on, investigative classroom activities. These activities will allow two-year college and secondary schools with limited budgets to provide future technicians and scientists with an excellent scientific background in the techniques and concepts of biotechnology. Additionally, a strong articulation between two-year and high school programs and industry will be established to ensure that students pursuing careers in biotechnology have the ability to enter the industrial or research work environment, as more than competent technicians, or to pursue higher degrees at four-year institutions. These activities will seek to involve all students in learning biotechnology, including women, minorities, and persons with disabilities. Emphasis will be placed on the role of biotechnology in the future of the human environment and medicine and the effect of biotechnology on preservation of plant species and enrichment of agriculture. Activities from this workshop will be refined, reviewed for scientific accuracy and pedagogy, and field-tested nationwide. Field test and review panel input will be used to modify the activities for compilation into a monograph for nationwide distribution. Project results will be disseminated through training and in-service workshops at national, state, regional, and local levels.